CRIF:MU: CAMRA-YSU - Cyber-Accessible Magnetic Resonance at YSU - Purchase of a 400 MHz NMR Spectrometer

With this award from the Chemistry Research Instrumentation and Facilities: Multi User program (CRIF:MU), the Department of Chemistry at Youngstown State University (YSU) will acquire a 400 MHz NMR spectrometer. The NMR spectrometer will be utilized in research projects including 1) synthetic heterocyclic chemistry, 2) bioorganic chemistry, 3) flexible macrocycles, 4) polymer and inorganic chemistry, and 5) nanoscale organometallic materials. This proposal will potentially include a large number of diverse and underrepresented students from institutions collaborating with Youngstown State University: Muskingum College (50% student body drawn from low-income Appalachian families), Harold Washington College (65% enrollment is African-American or Hispanic), and Delta College (majority of enrollment consists of first generation college attendees from blue-collar families).

Nuclear Magnetic Resonance (NMR) spectroscopy is one of the most powerful tools available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometers is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in synthetic organic chemistry and biochemistry.